A Workshop on Computational Learning Theory

This workshop brings together researchers working on the foundations of computational learning theory. Computational learning theory is a significant and growing activity, at the boundary of artificial intelligence and theoretical computer science. Its results affect both the design and validation of computer learning techniques and systems. The workshop is important in that it will aid in the rapid dissemination of computational learning theory results and experimental data, encourage collaboration among researchers, and facilitate the interchange of computer algorithms and systems.